U.S.-Asia Conference on Engineering for Mitigating Natural Hazards Damage

A U.S.-Asia Conference on "Engineering for Mitigating Natural Hazards Damage" will be held in BAngkok, Thailand, on December 14-18, 1987. The purpose for convening this meeting is to provide an open forum for intensive exchange of information, discussions, and sharing experiences in this field of research and professional practice between the U.S. and several Asian countries; and to identify problems of mutual interest and areas for cooperative research. Although there are many types of natural hazards, the focus of the conference will be on: extreme winds, floods, draughts, earthquakes, and various ground failures. The program will include the presentation of keynote speeches, special lectures, papers, panel discussions, and a field trip. The proceedings and a final report will be published and disseminated internationally.